AccessScope project: Independent microscope operation for students with mobility and visual impairments

PROJECT SUMMARY
In this project an automated microscope workstation will be specifically designed for
students with mobility and visual impairments to independently operate all features of light
microscopy. In a previous project an accessible microscopy workstation, called AccessScope,
was developed to allow persons with mobility impairments to control a research light microscope
without assistance through a personal computer, including loading slides. The PC became the
user interface for controlling the microscope hardware and for displaying slide images in a live
preview window via a video camera. Thus, the PC replaced the need to physically operate the
microscopy workstation and view through microscope eyepieces. The AccessScope project
demonstrated that independent control of microscopy was possible and useful for students with
disabilities to actively participate in this laboratory technique.
Intellectual Merit
Technical advancements can provide AccessScope with even greater functionality and
the capability to be independently operated by students with visual impairments. A standalone
software application to control AccessScope and view slides will be developed in this proposed
project. This new software application will provide features that other commercial applications,
including the one used in the previous AccessScope project, do not offer. Better stage movement,
theta rotation of slide images in real-time, and remote control of the AccessScope workstation
through the internet will be available. Disabled students using a PC will be able to remotely
control a publicly shared research-level light microscope from virtually anywhere. The graphical
user interface of the AccessScope application will be designed to accommodate users with low
vision and upper limb motor impairments. Design features of the user interface will include user
definable shortcut keys, intuitive graphical buttons and analog controls, color filtering, and the
ability to alter the user interface's color, size, and contrast. The AccessScope application will be
compliant with different assistive technology input devices for users with mobility impairments
and screen enlargers, magnifiers, and readers for users with visual impairments. The
AccessScope application will be simple enough in design to be used by secondary and
postsecondary students with disabilities yet powerful enough to be valuable for scientists.
Broad Impact
The goal of the AccessScope project is to allow students with mobility impairments or
low vision to independently use a light microscope and be able to actively participate in the same
learning experiences as their able-bodied peers. Microscopy is an essential tool in many STEM
fields. Not only does microscopy allow disabled students to participate in laboratory courses, but
the hands-on experience provides a greater understanding of the character of tissue specimens,
how histology slides are created, and the physics of microscope optics including its limitations.
Activity-based learning is critical for pursuing an undergraduate science education, graduate
level research, and many careers in science and engineering.
The AccessScope software program will allow students with disabilities to have complete
control of commercially available microscope equipment. This program will be freely distributed
to students and teachers in secondary and postsecondary institutions, thus decreasing the expense
of developing an AccessScope workstation. In addition, a demonstration version of the
application will also be available to allow users to evaluate AccessScope without commitment.